CCD-Based Curriculum in Astronomical Observing

The goal of this project is to incorporate state-of-the-art observing into all levels of the astronomy curriculum, from introductory courses to advanced senior research projects. A strong foundation is already in place--an extensive curriculum, a modern planetarium, dedicated teachers, and a relatively large (0.5-meter), new telescope--and this project builds on it. observing opportunities for students are being greatly expanded through the use of a CCD camera for the 0.5m telescope. In introductory classes the project enables the capture of student interest with images and observing projects possible only with the sensitivity and immediate output of the CCD. The best projects and labs are those that invite students to make their own observations, and a CCD camera makes that possible. Basic projects are made available to all students, and a new introductory lab section provides more extensive hands-on experience for the best students.For more advanced students a new lab course on modern CCD detectors and observing techniques is being created. Hands-on experience is a necessary and vital part of this course. For the most advanced and serious students among our physics majors and astronomy minors, independent study offers more extended access to the telescope, and the opportunity to gain additional observing experience and to pursue serious research.